The 13th International Conference on Applications of Computer Algebra

Computer and Computational Algebra is a fast growing field with
many applications in education, science, engineering, medical fields,
etc. To develop and explore such applications close cooperation is
needed between mathematicians, computer scientists, engineers, and
scientists. To facilitate such cooperation the Department of Mathematics
at Oakland University is organizing an international conference
during the month of July 2007 at Oakland University. The main goals
of this conference will be to promote the applications of Computer
Algebra and Symbolic Computation and to bring together researchers
from mathematics, computer science, engineering, and other sciences
in order to further cooperation.

The applications discussed in the conference are important in areas
such as education, mathematics, computer science, electrical engineering,
industrial applications etc. For example, one of the sessions is
organized by Charles Wampler who is the head of the GM Research
and Development group on robotics. The group's main activities are
based on techniques which make heavy use of computer algebra. These
techniques will be discussed in detail in the conference and will introduce
other researchers and students to the needs of the auto industry,
which is quite important for the economy of the Detroit area. Other
applications include coding theory and cryptography which are very
important decoding terrorist threats and securing safe communication
channels. Several of the session organizers are members of the NATO
Advanced Study Institute which will be organized in Albania in 2008.
This summer institute is funded by NATO and aims at training mathematicians,
computer scientists, and engineers from Eastern Europe
and Mediterranean countries to monitor the terrorist elements in those
countries. Finally, the organizers of the Applications of Computer Al-
gebra (ACA) conference at Oakland University hope that the new ideas
generated in this conference will have direct impact on industrial applications
and combating terrorism.